Extracting Multi-Decadal to Multi-Century Climate Records from Western Pacific Fossil Holocene Corals

Summary: This proposal requests funding for an exploratory field effort to test the feasibility of acquiring long multi-decadal to multi-century coral time series from subaerially exposed reefs in the western Pacific warm pool. Large coral heads from raised terraces in the Western Solomon Islands will be cored. A limited set of x-ray analyses, U-series dating, and isotopic measurements will be done to test the suitability of these locations for providing reliable multi-decadal to multi-century coral time series records for intervals of the Holocene.